Engineering Research Equipment Grant: A Deterministic Analysis of Turbulent Mass Transfer (Spectrum Analyzer)

This project is an Engineering Research Equipment Grant. PROJECT DESCRIPTION: Deterministic analyses applied to velocity fluctuation data obtained close to gas-liquid interface allow the estimation of the length and velocity scales of individual eddies taking part in gas absorption. The mass transfer prediction by this method has been shown to be superior to that by the statistical method employing the root mean square velocity and the integral length scale in two turbulence gas absorption. An extension of the deterministic approach to higher turbulence and for different device geometries is proposed. The spectrum analyzer is expected to expand the scope in this research significantly. Simultaneous measurements of concentration and velocity fluctuations by an oxygen microprobe and a laser doppler anemometer allow, for the first time, the investigation of transfer phenomena on a single eddy level. This method is utilized to confirm the proposed deterministic approach for analyzing mass transfer phenomena. JUSTIFICATION: The proposed research will help establish the deterministic method for analyzing the velocity fluctuation data to obtain the length and velocity scales of individual eddies. This new approach is expected to give better prediction of the mass transfer compared with the conventional statistical approach, and it could be extended to heat transfer as well. Potential applications exist in design of new biofermentors and gas-liquid chemical reactors.